Dissertation Research: Functional and Mechanistic Aspects ofPolyphagy in the Grasshopper Dactylotum Variegatum

While many plant-feeding insect species are quite specific in their food choices, selecting only one or two plant species for food, many grasshopper species feed on a wide range of different plants. This study will focus on grasshopper Dactylotum variegatum which inhabits the grasslands of the southwestern United States; this habitat contains a diverse array of food plants. Through detailed observations of individual insects in field, the PI's will determine whether each individual insect feeds on a number of different plant species or whether individuals tend to restrict their feeding to only one or two of the many foods utilized by the species. Associated with these field observations will be controlled experiments in which we will determine whether an insect's growth and development is enhanced by feeding on a mix of plants species rather than feeding on only a single plant. Finally, the PI's investigate what role learning, which has been previously demonstrated in grasshoppers, plays in determining the food choices of individual insects. This study will be one of the few detailed analyses of food selection by plant-feeding insects in the field and will contribute fundamental research information on the behaviors involved in the selection of food. A better understanding of why some insect species feed on many plants, while other species are very restricted in the plants they will feed on a likely result of the project.